Studies of Global and Regional Seismicity

This project involves studies of global and regional seismicity.
Central to the project is a continuation of the Harvard
Centroid-Moment-Tensor (CMT) Project, which now represents a
22-year-long effort to analyze global earthquake activity and to
maintain a comprehensive and authoritative catalog of earthquake
focal mechanisms, the CMT Catalog. In addition to the systematic
analysis and of earthquakes and dissemination of earthquake information,
the research also includes the development of a dynamic earthquake
moment-tensor database. The new catalog will be searchable on the
web, and will include auxiliary data, such as information about the
seismograms and Earth model used in the analysis, the quality of
the solution, and any history of updates to the results.
A second component of the project is an examination of previously
undetected earthquakes. More than 1,800 events with magnitudes greater
than 4.7 have recently been found using a new detection algorithm, and
a substantial subset of these are clearly not common earthquakes.
The effort will involve a first-order, systematic analysis
of the new events to determine why they eluded earlier
detection (e.g., whether all of the events lack high-frequency
radiation and are thus slow earthquakes) and the specific tectonic
(or non-tectonic) explanations for several specific groups of
detections, including (1) events associated with volcanic eruptions
or collapses; (2) events associated with glaciers in Alaska, Antarctica,
and Greenland; and (3) events off the coast of North Carolina,
possibly associated with submarine slumping.